Coherent Nanotechnology Quantum Devices for Information Processing

In a one-year small grant for exploratory research (SGER) granted by the ECS Division
of NSF, we have explored new concepts for coherent quantum effects in nanotechnology
devices. We have conceived of several new solid-state devices based on coupled coherent
quantum phenomena that are potentially useful for computing and communications, and
investigated their practicality through theoretical studies. With this initial success, we
now propose to continue these studies with a more extensive and precise analysis of the
phenomena and to initiate a coupled experimental program to show feasibility.

The nanotechnology structure that shows most promise for a quantum computer is based
on the spin of exchange coupled electrons trapped in an array of gated quantum dots
fabricated in either III-V or silicon. The proposed quantum computer is capable of 10 5
operations within the coherence time at a two-qubit operation rate at 10 8 Hz. It is readily
scalable to a large number of elements, on the order of ~10 6 qubits, and electrically
reconfigurable utilizing a planar architecture. This device is unquestionably
manufacturable using technology enabled by the 70-nm technology node as specified in
the "International Technology Roadmap for Semiconductors, 1999 Edition". We have
established collaborations with industry that wish to take advantage of this
nanotechnology once we have shown feasibility.

To fully examine the potential of our concepts, we propose to conduct a comprehensive
study by analyzing the physical parameters of the devices to generate the desired energy
structure and coupling strength among neighboring device elements, by investigating the
limitations to coherence, and by simulating the operation of the device to operate it as a
quantum computer. We further propose to undertake an experimental program to
fabricate and test elementary prototypes of these devices to demonstrate feasibility.
Collaboration between the theoretical and experimental studies should result in a nano-device
structure that is technically interesting and potentially important for commercial
use.

This research will be coupled to an educational program that provides interdisciplinary
research for graduate students and for the development of courses that introduce quantum
information processes at the graduate level within the Electrical and Computer
Engineering Department at North Carolina State University.